Travel: NSF Student Travel Grant for the 2025 IEEE North American School of Information Theory (NASIT 2025)

The 2025 IEEE North American School for Information Theory (NASIT 2025) will be held at the University of Minnesota in Minneapolis, from June 16th to June 20th, 2025. This grant provides support for the expenses of school participants from the United States such as graduate students and postdoctoral fellows. Attendees will benefit by learning from senior colleagues, presenting their own research in poster sessions, and expanding their network with the research community. This award will cover accommodation and travel for students.

The IEEE North American School (NAS) for Information Theory is an annual event of the IEEE Information Theory Society; 2025 will be the 17th year the school will have held the event. The NAS provides a supportive environment where foundations for learning and long-term future scientific collaborations are established. NAS delivers interactive education for graduate students in mathematics, engineering, and computer sciences. It presents students the opportunity to meet and learn from senior researchers in academia and industry who present long-format tutorials. Student and postdoctoral participants present their research results in poster sessions.